PostDoctoral Research Fellowship

This award is made as part of the FY 2012 Mathematical Sciences Postdoctoral Research Fellowships Program. These fellowships support a research and training plan at a host institution in the mathematical sciences, including applications to other disciplines. The title of the research and training plan for this fellowship to Inna I. Zakharevich is "Scissors Congruence and Algebraic K-theory." The host institution for the fellowship is the University of Chicago, and the sponsoring scientist is Dr. Peter May.